VPW: Cultivation of Cell-Polymer Tissue Constructs in Novel Bioreactors

The overall objective of this research is to investigate the effect of the in vitro culture environment on the cultivation of cell- polymer constructs in bioreactors. Seeding mammalian cells onto biodegradable polymer scaffolds and growing tissues on these scaffolds in bioreactors represents a novel approach to tissue regeneration. Studies have shown that tissue growth and function is affected by environmental forces. In these studies, cell- polymer constructs are cultivated in three bioreactors with distinctly different fluid dynamic environments. Measurements are made using laser doppler and ultrasound doppler techniques to characterize the fluid dynamic environment in each reactor. These measurements are correlated with structural and functional tissue properties. Results from these studies will increase our basic understanding of tissue growth and function under various hydrodynamic conditions and contribute to the optimization of bioreactor systems for cultivation of clinically useful tissues. The interactive activities include developing and teaching an interactive tissue engineering course, coordinating a "Brown Bag Lunch" Series for women and minority faculty and students, coordinating an outreach program for K-12 students, and participating as a Faculty Role Model/Mentor in student activities administered by the New England Board of Higher Education.